A Multiple Local Area Network for Undergraduate Engineering Education in Computer-integrated Design and Manufacturing.

This project will integrate existing computer-aided design (CAD) and computer-integrated manufacturing (CIM) facilities with a multiple local area network resulting in an innovative undergraduate interdisciplinary laboratory. The laboratory will use the new Manufacturing Automation Protocol (MAP) to control a hybrid electronics manufacturing facility. Both electrical and mechanical engineering laboratories will provide the student experiences in the interrelationships among engineering theory, the laboratory, design and manufacturing.